Building Middle School Students' Understanding of Heredity and Evolution

The Discovery Research preK-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects. This project will develop and test the impact of heredity and evolution curriculum units for middle school grades that are aligned with the Next Generation Science Standards (NGSS). The project will advance science teaching by investigating the ways in which two curriculum units can be designed to incorporate science and engineering practices, cross-cutting concepts, and disciplinary core ideas, the three dimensions of science learning described by the NGSS. The project will also develop resources to support teachers in implementation of the new modules. The planned research will also examine whether student understanding of evolution depends on the length and time of exposure to learning about heredity prior to learning about evolution.

This Early Stage Design and Development project will develop two new 3-week middle school curriculum units, with one focusing on heredity and the other focusing on evolution. The units will include embedded formative and summative assessment measures and online teacher support materials. These units will be developed as part of a curriculum learning progression that will eventually span the elementary grades through high school. This curriculum learning progression will integrate heredity, evolution, data analysis, construction of scientific explanations, evidence-based argumentation, pattern recognition, and inferring cause and effect relationships. To inform development and iterative revisions of the units, the project will conduct nation-wide beta and pilot tests, selecting schools with broad ranges of student demographics and geographical locations. The project will include three rounds of testing and revision of both the student curriculum and teacher materials. The project will also investigate student understanding of evolution in terms of how their understanding is impacted by conceptual understanding of heredity. The research to be conducted by this project is organized around three broad research questions: (a) In what ways can two curriculum units be designed to incorporate the three dimensions of science learning and educative teacher supports to guide students' conceptual understanding of heredity and evolution? (b) To what extent does student understanding of evolution depend on the length and timing of heredity lessons that preceded an evolution unit? And (c) In what ways do students learn heredity and evolution?